Information Sharing and Coordination Challenges in Financial Market Regulation: A research agenda setting workshop

This 1.5 day invitation-only workshop will be held in Washington DC in early 2013, and will address challenges in information sharing and coordination in financial market regulation. Topics to be addressed include the challenges created through the volume and complexity of the data as well as the dynamic relationship between markets, financial instruments, technologies, and institutions involved in the markets and their regulatory processes. Therefore, computational scientists as well as information and social scientists will be included among the participants, and participants from industry, academia, and government will be invited. A workshop report will be published a s a result of this workshop.

The 1.5 day invitation-only workshop, to be held in Washington DC in early 2013, will address challenges in information sharing and coordination in financial market regulation. Topics to be addressed include the challenges created through the volume and complexity of the data as well as the dynamic relationship between markets, financial instruments, technologies, and institutions involved in the market and the regulatory process. Experts in computational science, information science, and social science will be invited from industry, academia, and government. The multi-disciplinary approach will increase the likelihood of impact on future regulatory practices.